Invariants of Hyperbolic 3-Manifolds and Applications

DMS-0204311
G. Robert Meyerhoff

The monumental work of W. Thurston has shown the fundamental
importance of hyperbolic 3-manifolds within the study of 3-
manifolds. The proposer plans to work on a hard open problem in
the theory of hyperbolic 3-manifolds, and to attempt to strengthen
connections between number theory and the study of invariants of
hyperbolic 3-manifolds. The hard open question is the problem of
finding the closed hyperbolic 3-manifold of minimum volume. The
proposer, working jointly with D. Gabai and P. Milley, and in
consultation with N. Thurston, has a computer-based scheme to
attack this problem. The computational aspects of the approach are
interesting in their own right. The connection between number
theory/algebraic K-theory and invariants of hyperbolic 3-manifolds
is well-known, but a new approach to understanding it is proposed.
Specifically, a new method for computing the Chern-Simons invariant
of a hyperbolic 3-manifold might lead to interesting properties of the
dilogarithm function.

Almost 200 years ago, J. Bolyai, C. Gauss, and N. Lobachevsky
revolutionized mathematics by claiming that a legitimate geometry
could be constructed by taking the five classical postulates of Euclid
and negating the fifth postulate (the parallel postulate). Further,
they theorized that this new and mysterious non-Euclidean geometry
(now called "hyperbolic geometry") would have important applications.
Their theorizing has been borne out: hyperbolic geometry is vitally
important in the modern study of geometry. For example, hyperbolic
geometry turns out to be much more important than Euclidean geometry
in the study of "3-dimensional manifolds" (our 3-dimensional
Universe is an example of a 3-dimensional manifold). As another
example, it is quite possible that our Universe adheres to the laws
of non-Euclidean geometry rather than the laws of Euclidean geometry.
The proposer, working jointly with D. Gabai and P. Milley, and in
consultation with N. Thurston, plans to work on a computer-based
approach to solving one of the hardest and most fundamental problems
about hyperbolic 3-manifolds: finding the smallest one. In addition, the
proposer will try to strengthen the already existing connection between
hyperbolic 3-manifolds and number theory. The history of mathematics
has borne out the importance of finding strong connections between
(supposedly) disparate areas of mathematics.